Dynamic Distributed Systems

The objective of this project is to develop a hierarchical design methodology for dynamic distributed systems, and investigate its applicability to several application areas. One such application is the design of gracefully degradable systems that guarantee acceptably good performance in the presence of failures. Another application that will be investigated focuses on the design of distributed algorithms for dynamic graphs and computational geometry. The project will demonstrate how the hierarchical design helps synthesizing provably correct systems in the presence of failures, reconfigurations and how existing algorithms can be reused at appropriate layers.